East-Coast Regional Workshop on Architectural Research Needsin Earthquake Hazard Mitigation

This project will organize, convene and report on an NSF regionally-based workshop on architectural research needs in earthquake hazard mitigation. The workshop will review and analyze the current state-of-the-art in relation to a range of earthquake hazard mitigation in architectural and nonstructural systems, and in relation to broader land-use planning issues and physical urban design issues. Future research needs will be identified and prioritized for these same systems under the goals of the Architectural and Mechanical Systems (AMS) program element. As one of three regional workshops on the topic subject, this workshop will focus on East-Coast issues. A Final Report on Workshop results will be issued for distribution to the architectural and urban design research community and for NSF use in program development.